An Iterated Homogenization Method to Study Cavitation in Soft Solids

Lopez-Pamies
DMS-1009503

Experimental evidence has shown that loading conditions with
sufficiently large triaxialities can induce the sudden appearance
of internal cavities within elastomeric (and other soft) solids.
The occurrence of such instabilities, commonly referred to as
cavitation, can be attributed to the growth of pre-existing
defects into finite sizes. Because of its close connection with
material failure initiation, the phenomenon of cavitation has
received much attention from the materials and mechanics
communities. Cavitation has also been a subject of interest in
the mathematical community because its modeling has prompted the
development of techniques to deal with a broad class of
non-convex variational problems. While in recent years
considerable progress has been made via energy minimization
methods to establish existence results, fundamental problems
regarding the quantitative prediction of the occurrence of
cavitation in real material systems remain largely unresolved.
In this project, the principal investigator develops a novel
framework to study cavitation that: (i) is applicable to large
classes of nonlinear elastic solids of practical interest, (ii)
allows for 3D general loading conditions with arbitrary
triaxiality, (iii) incorporates direct information on the initial
shape, spatial distribution, and mechanical properties of the
underlying defects at which cavitation can initiate, and (iv) is,
at the same time, computationally tractable. This is
accomplished by means of an innovative iterated homogenization
method that allows for the construction of exact solutions for
the mechanical response of nonlinear elastic materials containing
random distributions of initially infinitesimal cavities (or
defects). These include solutions for the change in size of the
underlying cavities as a function of the applied loading
conditions, from which the onset of cavitation can be determined.
In spite of its generality, the analysis of the proposed
formulation reduces to the study of tractable Hamilton-Jacobi
equations in which the initial size of the cavities plays the
role of time and the applied load plays the role of space.

This project makes available a fresh methodology radically
different from existing approaches to investigate the influence
of defects in solids. This is a core topic in mechanics, of
great importance for understanding and predicting the failure of
real-world materials. More generally, the project aims to
develop analytical techniques that link the macroscopic
properties of soft heterogeneous materials directly to their
microscopic properties and underlying microstructures, a central
issue in many fields of modern science. Beyond putting forward
fundamental understanding of how microscopic behavior influences
macroscopic behavior, these techniques provide engineers and
scientists with mathematical tools to characterize and predict
the mechanical response and failure of a broad spectrum of soft
composite materials, including elastomeric composites (e.g.,
filled elastomers) and biological tissues (e.g., arterial walls).